Research Initiation Award: Pore Size Distribution and Fluid Transport of Compacted Clays

Two methods for determining the pore size distribution of clays will be used to develop and validate a fluid transport model that deals with the movement of contaminants in compacted clays. Applications could be in the area of waste containment structures, for example the clay liners in landfills.